Integrable systems and Gromov-Witten theory of non-orientable surfaces

Abstract

Award: DMS-0406077
Principal Investigator: Motohico Mulase

The proposed project is aimed at generalizing one of the recent
developments in the area of Gromov-Witten theory of compact
Riemann surfaces to the case of non-orientable surfaces. In the
area of complex and symplectic geometry, integrable systems, and
mathematical physics, amazing new developments have been achieved
in recent years. At the time of their discovery in 1985,
Donaldson invariants of differentiable four manifolds, Jones
polynomials of knots and links, and Gromov's idea of pseudo-
holomorphic curves were considered as independent entities.
Since the time of Atiyah's provocative lecture in 1988, their
hidden inter-relations have been emerged. Through the work of
many mathematicians and physicists, a clearer picture of the
connection of these theories is revealed. Most recently, more
direct relations have been discovered, through calculation of the
generating function of these invariants and their association
with integrable systems and representation theory. Among them is
the work of Okounkov and Pandharipande, who determined the
Gromov-Witten invariants of an arbitrary compact Riemann surface
as the target space. Their fundamental results include a proof of
the conjectured Virasoro constraints, identification of the
generating function of the invariants of the Riemann sphere as a
solution to the two-dimensional Toda lattice equations through
Fermionic Fock representation, and a new proof of the
Witten-Kontsevich theory of intersection of cohomology classes on
the moduli space of Riemann surfaces. We propose to establish
Gromov-Witten theory of real algebraic curves without boundary,
and obtain the counterpart of the above theorems for the case of
non-orientable surfaces.

The topological and geometric structures of various kinds of
spaces have attracted intensive research in mathematics and
mathematical physics for many decades. Poincare's idea on
homology and homotopy theories have proven to be useful
throughout the 20th century. The applications of these theories
are seen in physics, chemistry, and understanding the dynamical
properties of DNA. Only toward the end of the previous century
mathematics has encountered a true generalization of the ideas of
Poincare, applicable to the particularly interesting spaces
(called symplectic manifolds) that appear naturally in any kinds
of mechanics and dynamics. The new invariants, known as the
Gromov-Witten invariants of symplectic spaces, have shown
extremely mysterious connections to almost all areas of
mathematics. Mathematicians feel quite happily that they
understand the homology and homotopy theories very well. Compared
to that level, our current understanding of the Gromov-Witten
theory is at the best very limited, and the whole subject is
still filled with mysteries. We believe that to have a deeper
understanding of the theory, we should generalize it further and
include the consideration of new cases never done before. The
proposed project is aimed at discovering a generalization of the
theory in a particular context, using non-orientable surfaces.